Curatorial Assistance to the Southern Illinois University Fluid Collection(Vertebrates)

9615547 Burr The NSF funds provided to this project of the Southern Illinois University's fluid collection of vertebrate animal specimens will be used to hire a Collection Manager for two years (after which time the position will be made permanent by the University), to move the collection into 3500 square feet ($518,000 value that incorporates environmental controls and room for growth) of new space recently constructed by the University (which, in addition to the new space, has provided $31,000 in shelving, computers and other equipment), and purchase basic curatorial supplies to improve and expand the relocated and centralized SIUC fluid collection of vertebrate animals. The SIUC collection has been heavily used as a regional resource, and contains unique and valuable materials used in systematic and ecological research and training, and in environmental analysis and monitoring of changes in biodiversity. The funding for the overall project, clearly, is an excellent example of partnership between the Southern Illinois University and the NSF. THIS ABSTRACT IS IN "TEXT ONLY" FORMAT AS: H DRIVE (4MAC aka DEBPOP) according to the following path: RCSE: FY97: FALL: ABSTRACTS: 9615547.TXT